Structure and algorithms, between logic and algebra

McKenzie will investigate algorithmic
questions which involve properties of finite algebras determined by the
varieties and quasi-varieties they generate, and
structural questions which involve the necessary algebraic properties
that must be true throughout a locally finite variety or quasi-variety
as a consequence of that class possessing some natural property defined
through logical or set-theoretic means.
The outstanding algorithmic questions: Is there an algorithm to
determine if the quasi-equations valid in a finite algebra F
are finitely based? Is there an algorithm to determine if the
quasi-variety generated by F possesses a natural duality?
Is the class of finite algebras possessing a finite equational basis
recursively enumerable? Is the class of finite algebras generating
a residually large variety recursively enumerable?
Among the important structural questions: What collection of algebraic
properties is necessary and sufficient for a finitely generated variety to
be finitely decidable, or to have few models?
He will work on an algebraic conjecture that, if proved, would establish an
important case of the
dichotomy conjecture for the constraint satisfaction problem of
theoretical computer science: every finite algebra F in a meet semi-distributive
variety has finite relational width.

The principal investigator believes that research
into the interplay between, on the one hand, the existence or nonexistence
of algorithms to recognize fundamental properties of finite algebras,
and on the other hand, the levels of structural complexity manifested
in the algebras---what this project is all about---has the potential
not only to expand our understanding of the structural possibilities in
finite algebraic systems (which it has already done), but to produce
fundamental breakthroughs in theoretical computer science.
The most likely place for this to occur soon is in the algebraic approach
to the constraint satisfaction problem (CSP).
Specific instances of the constraint satisfaction problem,
including graph homomorphism problems,
are ubiquitous in many areas of artificial intelligence, computer
science, database theory, scheduling, networking, hardware verification, etc.
The algebraic approach puts some of the most developed areas of
universal algebra, especially the machinery of tame congruence theory
developed by the principal investigator, to work in the study of combinatorial problems
related to the CSP;
and it may have potential applications
in the study of other computational paradigms, such as approximation
and randomized algorithms, and quantum computation.